Internal Redistribution of Energy in Chemicals Excited by Light

This grant in Organic and Macromolecular Chemistry provides support for the research of Dr. Peter Wagner, Michigan State University. The work is focused on photochemical mechanisms of a variety of organic compounds. These studies are designed to elucidate the details of the interactions between organic molecules and light. Their understanding is important for a number of chemical and biological processes. Chemical interactions between two discrete parts of one molecule are at the core of most modern synthetic organic reactions. Many such reactions are initiated uniquely by the absorption of light. Several such light-induced reactions are the main subject of this work. The use of light to promote reactions within one molecule not only allows some new reactions that could not otherwise occur, but also provides unique insight into how molecules change shape and into the geometries required for various chemical reactions. Because the reactions of light-excited molecules are as fast as the motions by which molecules change their shapes, altogether new competitions occur that cannot be measured in thermal chemistry. Several systems will be studied in which the orientation of the two reactive components in one molecule can be varied so that the effect of such orientation on specific reactions can be assessed. The reactions to be studied include transfer of excitation energy; electron transfer, sometimes followed by chemical bonding and novel product formation; hydrogen atom transfer, followed by novel product formation; and cleavage of halogen atoms to produce polymerization initiators.